SBIR Phase II: Development of a BioAcoustic Mixing Platform

This Small Business Innovation Research (SBIR) Phase II research project develops a mixer based on sound waves applicable for use in bioreactors for cell culturing and fermentors. Cell culturing and fermentation are large markets where significant growth is forecast over the next several years. This research will establish the optimal design and operating conditions for this non-invasive and non-destructive mixing technology. It is anticipated that performance for many applications can be enhanced by 50% or greater over state-of-the-art technology using this novel agitation technology.

The broader impact will be to reduce the costs of pharmaceutical production, when such production is based on biological feedstocks. Media and process development for biological production of pharmaceuticals is costly and time-intensive and performed using stirred-tank bioreactors due to the limitations of orbital shake-flask and cell culture flasks. A mixing technology that could unify laboratory-scale and pilot-scale experiments would be highly valuable in speeding the pace of process development. Low-frequency acoustic energy will dramatically enhance gas-liquid mass transport without increasing hydrodynamic shear stress. The research project will enhance the scientific understanding of low frequency acoustic mixing processes by quantifying the impact of acoustic frequency on oxygen transfer rates and cellular growth. The significance to society that the successful development is a dramatic increase in the pace of biotechnological process development. This will lead to more rapid commercialization of and lower prices for pharmaceutical products that enhance overall quality of life.